CISE Research Instrumentation: Vision and Simulation Projects at the University of Iowa

This award is to purchase a color stereo head mounted on a robot arm, high performance graphics workstations, and cameras in order to support investigations in the use of color algorithms in model based vision; algorithms for machine stereopsis; applications of invariant theory in recognising curved surfaces from a single perspective outline, from multiple outlines, and from stereo pairs; particle motion analysis; and simulation techniques for complex physical objects. The University of Iowa will be purchasing a color stereo head with supporting image processing electronics, a Zebra Zero robot arm, two high performance workstations, and camera equipment to support research projects in the use of sophisticated color algorithms for machine stereopsis, advanced algorithms for machine stereopsis, shape recognition, and simulation techniques for complex physical objects.